Instructional Technology/Data Communications Equipment

Valdosta Technical College is modifying educational programs in information and computer information systems technologies data communications electronics, industrial electrical and industrial systems technologies, and automotive technology to make use of equipment donated by the US Marine Corp. Students gain crucial hands-on experience by working with this equipment, developing skills essential to their success in careers.